Using Routines as an Instructional Tool for Developing Students' Conceptions of Proof

Developers and researchers at TERC, the Education Development Center, and Mount Holyoke College are participating in the development and systematic investigation of a teaching model to assist teachers in developing ideas about proof in grades 2-5. The teaching model provides both a tool for learning on the part of elementary teachers and a model of practice from which they can learn as they implement it.

The project is a teaching experiment in which the model is iteratively implemented and refined, first with teachers experienced in incorporating ideas about proof into their classroom instruction (Phase 1), then with teachers who are relatively inexperienced, both in their own understanding of proof and in their knowledge of how their students can learn about proof (Phase 2). Research questions focus on developing the components of the model, the learning of teachers as they implement the model, and the learning of students as they engage in the instruction that is guided by the model, with particular attention to students with varied histories of achievement in grade-level work on number and operations.

The expected outcome is a teaching model that can be tested on a larger scale as well as instruments for assessing student learning and teacher understanding of proof. The model includes printed material with descriptions of the routines and instructional sequences, guidelines for implementing each component, and a teaching framework as well as written and video case examples.